Collaborative Research: US GEOTRACES PMT: Quantification of Atmospheric Deposition and Trace Element Fractional Solubility

The goal of the international GEOTRACES program is to understand the distributions of trace chemical elements and their isotopes in the oceans. An essential part of this effort is determining the sources of trace elements to the oceans, one of which is from the atmosphere: dust falling from the air, and rain, both deliver elements to the sea surface. This project would collect and analyze samples of rainwater and of particles from the atmosphere, along a U.S. GEOTRACES expedition from Alaska to Tahiti in the fall of 2018. The timing of the expedition corresponds to the part of the year with the highest atmospheric dust concentrations in the Gulf of Alaska and may also capture the tail end of peak fire season in Asia. In contrast, the southern end of the proposed ship track is known to have very low atmospheric dust. Aerosols will be influenced by human activity in Asia as well. The anticipated differences in atmospheric deposition along the ship track will allow the assessment of the role of this process on trace element and isotope cycling. The project will support a postdoctoral investigator. The relevance of ocean-atmosphere studies to the public will be communicated at campus open house events and in online forums in collaboration with the GEOTRACES management team.

In alignment with the mission of GEOTRACES, the proposed research will address the following biogeochemical and oceanographic questions: 1) What is the magnitude of atmospheric aerosol deposition (wet and dry) to the surface of the Pacific Ocean? 2) What is the chemical composition of these aerosols and how does composition vary based on source (e.g. Alaskan glacial flour, Asian mineral dust, emissions from biomass burning, anthropogenic emissions)? 3) What is the fractional solubility of trace elements in Pacific aerosols and does solubility vary based on aerosol source? 4) What is the potential bioavailability of soluble aerosol Fe? 5) How is the soluble fraction of aerosol trace elements distributed across operationally defined size classes? 6) How does atmospheric deposition impact distributions of other GEOTRACES parameters? Atmospheric aerosol and precipitation samples will be collected over the 70-day expedition and the investigators will provide sub-samples to collaborators and other interested scientists. These samples will be analyzed for a suite of key trace elements from bulk and size-fractionated aerosol samples, aerosol leachates, and rain samples. A sequential extraction scheme designed to solubilize aerosol Fe as a function of its FeOx morphology and particle size will be used on selected samples because an understanding of aerosol trace element fractional solubility is fundamental to future work to assess the bioavailability of aerosol derived trace elements. The proposed work will provide data that directly contribute to the GEOTRACES objectives related to atmospheric deposition and will help to address temporal variability as this cruise section follows the CLIVAR/Repeat Hydrography P16N line.